A Frequency Modulated UV Source for Measuring Tropospheric Hydroxyl Radical

9360836 Oh The proposed technique will utilize a tunable, wavelength modulated UV beam near 308 nm, generated by sum frequency mixing the output of a high power single mode diode laser with the single frequency output from an Ar+ laser in a nonlinear crystal, to access the OH A 2 + X 2 band. This approach promises to yield good temporal and spatial resolution in tropospheric OH measurements due to improved detection sensitivity by high frequency wavelength modulation detection. In Phase I, laboratory experiments will be conducted to generate the frequency modulated UV beam and to measure OH radicals in a discharge-flow reactor. The results of these experiments will provide a basis for critical assessment of the feasibility of this technique for tropospheric measurements and will establish the crucial design parameters for development of field instrumentation in Phase II. ***